An Undergraduate Very Large Scale Intergrated Circuit Designand Test Laboratory.

A laboratory with four Sun Microsystems 3/110L microcomputers and peripherals will be integrated into the three course sequence in VLSI design. After a course in semiconductor materials, the students will be introduced to VLSI circuit design using modern workstations. As part of the laboratory, the students will design a circuit which will be fabricated at a foundry. Finally, the students will test their designs using automated test equipment.